Professional Development Workshop for Underrepresented Doctoral Engineering Students supported through the Directorate for Engineering’s Graduate Research Diversity Supplements

This Professional Development Workshop for Underrepresented Doctoral Engineering
Students is designed to provide information, guidance, and networking opportunities to
the graduate students participants. The proposal is also providing opportunities to
discuss the transition of the doctoral candidates to academe, government or industry.
The immediate outcome will enhance diversity and improve the effectiveness of
engineering companies and academic institutions by providing educated professionals
to the workforce.